Chaos and Stability in Quantum Mechanics

9706256 Howland Howland will study (1.) stability and chaos in discrete quantum systems driven by time-dependent perturbations; (2.) the asymptotics of resonance widths in multiscale perturbation problems; and (3.) the occurrence of twisted bundles in the Born-Oppenheimer approximation for molecular Hamiltonians. Chaos Theory, one of the most important new fields of mathematics to arise in the last few decades, is concerned with systems which can exhibit a very erratic motion. The most common example is the turbulent flow of water from a pipe when a faucet is turned on hard. A famous early example concerned computer models of the weather, where the occurrence of chaotic behavior makes it impossible to predict the weather more than a few days in advance. Perhaps the most important discovery has been simply the realization that, far from being rare, chaotic behavior is not only very common, but in some sense, is actually the most common type of behavior. The systems usually studied in Chaos Theory are described by Classical Mechanics, the theory initiated by Isaac Newton which describes ordinary objects like those we experience. Microscopic systems like atoms, molecules, and electrons are not at all like the objects of ordinary experience, and are described by a strange theory known as Quantum Mechanics, which was developed in the first quarter of this century. The main thrust of the present project is to study Chaos Theory in the context of atomic and molecular systems. This is quite difficult because, since Classical Mechanics and Quantum Mechanics are so very different, there is no agreement on exactly what it is that one wants to study. This is still a field where most experts feel that some sort of new ideas and approaches will be needed before the problem is understood. An example of the type of system that is of interest is a Hydrogen atom in a laser field. As simple as this seems physically, it is quite a difficult mathematical problem. In the present project, simple models of such a system will be studied in order to try to come to some understanding of how they work.